Combined Enzymatic and Chemical Synthesis of Sialosides

Chemical synthesis of sialosides, has proven problematic and the lack of chemical amounts of sialic acid containing carbohydrate groups has hampered investigations into their biological roles. This project will exploit the use of purified mammalian sialyltransferases to develop efficient synthesis of sialosides at a scale not currently possible by chemical methods alone. There are numerous examples of sialosides involved in cellular recognition. Sialosides serve as cellular attachment sites for viruses, mycoplasma, bacteria and bacterial toxins. Sialylated carbohydrate groups also appear to contain information important in cell recognition, aspects of cellular differentiation and development. Investigation of the biological roles of sialic acids will be greatly aided by the availability of pure sialyloligosaccharides and by synthetic approaches to synthesize additional compounds as desired.